COLLABORATIVE RESEARCH: Impact of the 2010 Caribbean Coral Bleaching Event: Assessing Changes in Coral Immune Function

The investigators requested RAPID funding to assess the impact of the 2010 Caribbean bleaching event on coral gene expression, immune function and coral reef communities. 2010 is currently tracking as the warmest year ever on record, potentially creating one of the largest thermal anomalies in the Caribbean basin and in the southeastern Caribbean, exceeding the previous record-breaking temperatures of 2005. These investigators will perform coral surveys at selected sites in the southeastern Caribbean and sample collections in Puerto Rico during and after this transient event to compare coral health measures with previously collected pre-event data. The study will integrate several levels of data, from remote temperature sensing satellite records, to coral health, cover and diversity surveys, to studies of individual coral immune function and microbial assemblages. The scale of this thermal event is significant enough that the investigators hypothesize levels of disease will increase following this event, as was observed after the 2005 Caribbean bleaching event and the 2002 Australian bleaching event. The RAPID study will also test the hypothesis that this large scale thermal anomaly will stress corals in Puerto Rico and down-regulate immune gene expression in thermally sensitive species (Montastrea spp), but potentially up-regulate expression in a thermally resilient species (Gorgonia ventalina). The investigators also hypothesize that this expected level of coral bleaching will change the surface microbial communities of both species toward more Vibrio-based communities, and this is the first step in increased disease susceptibility to opportunistic pathogens.

Intellectual merit: This project is relevant to an understanding of the resilience of marine ecosystems and the impact of ocean warming events on coral physiology and biodiversity. Current understanding of the impacts of warm thermal anomalies is largely restricted to the bleaching response of the corals themselves, with much less known about how warm temperatures change the functioning of the coral holobiont via the microbial constituents and/or the immune responses of corals. There is tremendous value in following the physiology and gene expression of corals in the field through an extreme and transient event like this. Laboratory studies could never truly duplicate these field conditions, particularly with respect to disruptions to the natural resident microbial community that is so critical to the coral holobiont.
This RAPID project will focus on objectives for which pre-event data/samples exist:
1) Monitoring levels of coral disease, coral species diversity and coral cover in Puerto Rico, Grenada, Trinidad, the Mexican Yucatan, and Panama.
2) Assessment of coral immune responses and immune gene expression in a resilient gorgonian (Gorgonia ventalina) and a susceptible scleractinian (Montastraea spp). Sampling will occur pre-bleaching, during the heating event and after recovery.
3) Assessment of changes in total microbial community before, during and after the heating event in the two above mentioned species.

Broader Impacts: The dramatic visual impacts of coral bleaching will be captured in photos and videos that, when used in website, media and lecture outlets will help to garner public interest in coral health (e.g. www.cnn.com/2010/OPINION/09/27/harvell.coral.reefs/index.html). This interest will then be leveraged to raise public understanding of more subtle climate impacts in the ocean. Through this RAPID project the investigators will build upon ongoing local public outreach programs with the Ithaca Science center, Paleontological Research Institution, Science Cabaret, Arlington Independent School District as well as national outreach such as the "Expanding your Horizons" program and the "Sally Ride Science Festival for Girls". This work also embodies many of the objectives of the Cornell Center for Sustainable Futures, and for this reason, the center will contribute matching funds to this project.